Microcomputer-Based Imaging and Animation for Instruction inUrban Design and Design Evaluation

This project will enable the School of Planning at the University of Cincinnati to teach undergraduate planning students how to use microcomputer-based imaging and animation as a way of simulating then evaluating alternative urban design proposals. The School's courses in still-imaging are open to other undergraduates as well (for example, from architecture). The School and the University have invested in the microcomputer hardware necessary for animation. AT&T donated the animation software. However, we lack the proper recording equipment. Hence, we are requesting NSF support for the purchase of a video disk recorder to record urban planning and design animation projects done by students. Also, we will purchase a rapid rendering board that reduces the rendering time per image by an approximate factor of ten, thus enabling more students to use our single animation station. This project is significant in planning because it will enable students to create dynamic simulations of alternative design proposals in a microcomputer environment. We feel that this could become an important professional skill for our students given the interest already expressed by prospective employers.